Problems in Homotopy Theory and Group Cohomology

Professor Kuhn has a long record of developing homotopy and
representation theoretic methods to solve problems in both topology
and algebra. Recently, he has discovered some remarkable connections
between two of the main strands of homotopy theory as studied over the
past 25 years: homotopy as organized into its `periodic' layers (as in
the work of M.Hopkins), and homotopy as organized using sophisticated
homotopical algebraic decomposition techniques (as in the work of
T.Goodwillie). The largest part of this project concerns the
continued exploration of these connections, and the continued
development of tools for exploiting this. A second part will focus on
some problems in finite group cohomology exploiting primitives
associated to central extensions. Specific older work of his to be
brought to bear on these questions include his work on the Whitehead
Conjecture, Bousfield--Kuhn telescopic functors,
Hopkins--Kuhn--Ravenel generalized characters, and unstable modules
over the Steenrod algebra.

Homotopy theory and group cohomology are mathematical subjects in
which one is trying to discover, and ultimately classify, fundamental
"building blocks" of structure: homotopy dealing with deformations of
geometric objects such as higher dimensional surfaces, and group
cohomology being concerned with analyzing symmetries of both geometric
and algebraic objects. A sample homotopy problem is to understand the
"shape" of all continuous functions from a surface to itself. A sample
group cohomology problem is to understand the way in which very basic
subgroups of symmetries "control" the behavior of more complicated
symmetry groups. Professor Kuhn is studying these subjects by
developing a variety of state-of-the-art algebraic and homotopy
theoretic tools. By their very nature, many of these tools involve
"universal" constructions of interest to researchers in other
scientific disciplines ranging from computer science to robotics.